Quantum Gravity and Relativistic Astrophysics

An award to the Theoretical and Astrophysical Relativity group of the University of Utah is being made to enable them to continue their fundamental studies in the quantum theory of gravity, the nature and role of time, the electrodynamical behavior of black holes in active galactic nuclei, and sources of ultra-high-energy cosmic rays.